Communication and Architectural Supports for Implementing Distributed Shared Memory on Wormhole Networks

The goal of this project are 1) determining the communication, synchronization, and architectural requirements for supporting DSM and 2) developing design guidelines to build efficient wormhole- routed networks for supporting the DSM models. The research is focused on four research directions: developing multicast algorithms for effective cache-coherency, mechanisms and algorithms for barrier synchronization, techniques to alleviate hop-spot problems, and determining the necessary architectural supports. Theoretical and probabilistic analysis together with simulation experiments are being used to develop and validate the results. The educational activities of this project include enhancing and strengthening the computer architecture curriculum (undergraduate, graduate core, and graduate research courses), formulating a capstone design course, undergraduate mentoring, and creating challenging and interactive environment for graduate learning.